CRREL-Operations

This amends an existing Memorandum of Agreement (MOA) by making an award to the U.S. Army Cold Regions Research and Engineering Laboratory (CRREL) for engineering support to US Antarctic Program activities as follows:

? $220,639 for test of bladders proposed for use on the South Pole Traverse.

CRREL is a government organization, not affiliated with the NSF or the prime support contractor. Program recommends award for the amount of $220,639.